U.S.-Argentina Cooperative Science Program: Taphonomy, Technology and Paleoecology on the Eastern Pampas of Argentina

This US-Argentina Cooperative Science award will support the collaboration of Eileen Johnson of Texas Tech University and Gustavo Politis of the National University of La Plata, Argentina. The project aims to explore the taphonomy, technology, and paleoecology of early Pampean sites, in an assessment of whether there is evidence that Early Man kill- sites occur in South America. In the last 20 years, late Pleistocene and early Holocene Early Man sites have been discovered on the Pampas. These sites are critical to understanding the early peopling of Argentina and South America. This project will conduct bone studies aimed at delineating formation and disturbance processes at the sites, the subsistence base and social structure of the hunter-gatherers occupying these early sites, the use of bone as a resource, and the environmental and climatic setting of these early occupations. The researchers will analyze bone material from four sites in Argentina, which will provide a broad view of the range of variation in activities, topographic settings, space, and time. The Argentine side will contribute access to the research sites, expertise in local archaeology, and laboratory facilities. The US side will contribute its expertise in US grasslands models and training for several Argentine students, including one who will spend a half-year in Johnson's lab.